RET Site: Rutgers University Research Experience for Teachers in Engineering (RU RET-E)

This award provides funding for a three year standard award to support a Research Experiences for Teachers (RET) in Engineering Site program at Rutgers University entitled, "RET Site: Rutgers University Research Experience for Teachers in Engineering (RU RET-E)", under the direction of Dr. Kimberly Cook-Chennault.

This RET in Engineering Site aims to: 1) engage a total of 24 pre- and in-service middle and high school mathematics and science teachers in innovative "green" engineering research during the summer, and 2) support teachers as they leverage their research experience by integrating engineering innovation into their academic year, pre-college classrooms.

This project will build a long-term collaborative relationship between local district schools and the Rutgers University School of Engineering. This partnership will infuse engineering education into the middle and high school curriculum and provide an enriching experience for pre- and in-service teachers. The lessons developed will be interdisciplinary, meet New Jersey State Standards, presented to a larger group of educators, and be available for download on the World Wide Web. Teaching strategies and lesson plans will be disseminated to non-RU RET-E participants for greater impact via an academic year workshop.